National Science Outreach Network

The National Science Outreach Network will provide school children, teachers, and the general public with highly accessible interactive exhibits dealing with popular topics in science and technology. The network, initiated as a partnership between regional science centers and public libraries, will be modeled after the highly successful statewide Oregon Library Exhibits Network established in 1987. Through this smaller network, the Oregon Museum of Science and Industry, a nationally recognized pioneer in science exhibitry and outreach programming, circulates small hands-on exhibits to rural population centers through installations in public libraries, where school groups and families have free and convenient access. This national dissemination project will be initiated in five regional sites across the country (Colorado, Minnesota, New York, Tennessee, and Oregon) to further establish the model in rural, inner-urban, economically disadvantaged, and culturally diverse regions. With support from both the NSF and the regional networks, The National Science Outreach Network will design and duplicate six exhibits for circulation to dozens of local communities in each designated region. Over the next seven years, over six million individuals, many of whom do not currently frequent a local science center, will be introduced to popular science in a non-threatening, resource- rich setting. This will encourage further exploration and possible future visits to an accessible science center, and ultimately establish an ever-expanding network of museum and non-museum partners providing science and technology learning opportunities to millions of individuals each year.